Integrating Sustainability Issues into Undergraduate Education

Interdisciplinary (99) Middlesex County College, the New Jersey Higher Education Partnership for Sustainability (NJHEPS) and its member organizations provide undergraduate students in a variety of two and four-year institutions in New Jersey with both the breadth and depth of understanding in mathematics, science and technology to enable them to participate as informed citizens in discussion and decisions on critical environmental issues. Faculty from NJHEPS colleges and universities, working in interdisciplinary teams, pilot-test and implement four new instructional modules that can be used in a broad variety of undergraduate courses and that incorporate instruction in science and technology within the context of environmental sustainability. The WebQuest strategy for Internet research is adapted as an instructional model within the modules. A three-stage process provides faculty with the skills and knowledge to develop effective instructional modules on environmental sustainability using real world issues and research methodologies, particularly the WebQuest strategy for Internet research.